Workshop on Interdisciplinary, Globally Leading Polymer Science and Engineering, August 15-16, 2007, Arlington, VA

This Workshop, supported by the Division of Materials Research and the Office of
Multidisciplinary Activities of the Directorate for Mathematical and Physical Sciences, is
focused on providing broad guidance on future directions in polymer science,
engineering, and education.

INTELLECTUAL MERIT: Given the major developments in scientific research in
polymers and the simultaneous evolution of the polymer industry in the 10 years
following the last NSF Workshop on Interdisciplinary Macromolecular Science and
Engineering, it is essential and timely that a new workshop be held now to identify and
update specific science and engineering research opportunities and strategies. At the same
time, reflecting the increasing globalization of science and technology, it is essential to
examine the polymer field under this light and to identify opportunities and challenges in
terms of education and international competitiveness. For this purpose, a two-day
workshop will be held at NSF headquarters with the participation of leading scientists,
engineers, and educators from academia, industry, and national laboratories. This
workshop is to tbe organized by a committee of six individuals representing very broad
academic and industiral perspectives and having expertise across the polymer field and its
interfaces with areas such as physics, chemistry, biology, materials science, and
exngineering. The following six topics have been identified for study and discussion
among the workshop participants: (1) Polymer synthesis and new polymeric materials,
(2) Design and manipulation of complex polymer systems, (3) Computational modeling
and theory, (4) Processing and assembly, (5) Characterizatin and properties, and (6)
Polymer technology in the service of society. Education and competitiveness will be
woven into each of these themes and throughout the workshop. In addition to the six
subgroups fo 6 to 10 particpants to discuss each of the above topics, the workshop will
begin with seven plenary speakers on issues of major importance and timeliness. These
will include hiearchical functional materials, polumers in biology and medicine, energy
production and storage, environmental and sustainability, cyberscience and polymers, and
global security.

BROADER IMPACTS: Emphasis on educaton and international competitiveness will
be given throughout the workshop and will also be the subject of a panel discussion on
the first day. The workshop will create a web site that will be used as a tool to solicit
input and suggestions on these topics from the polymer community and to provide
information about workshop organization, schedule, and (evenutally) conclusions.
Participants in the workshop will reflect a wide diversity and include leading senior and
junior academic researchers, polyer educators, members of industry and government
laboraties to ensure that the conclustions of this workshop are broadly applicable across
polymer research and education. A few selected graduate students (to be included as
assistants) will also benefit from this unique experience. Following the workshop, the
organizing committee will report to NSF on the recommendations fo the entire group, and
will subsequently publish a final report. The report will address key new research and
education directions, as well as the changing industrial needs and global context of
polymer research. The resulting report will be broadly disseminated through publication
in print and on the Internet and is expected to influence the global polymer science and
engineering community. Major interest for this workshop has been expressed by many
other Federal Agencies, which are expected to participate and co-sponsor it.